Student Travel Support for ACM HotNets-I Workshop; Princeton, NJ; Oct. 28-29, 2002

This award will support approximately 15 students in attending the ACM HotNets-I Workshop being held in Princeton, NJ on October 28-29, 2002. The purpose of the workshop is to bring together researchers in the networking and distributed systems community to debate emerging research directions.